Advanced Study Institute on Techniques and Concepts of High Energy Physics

9513861 Ferbel This grant provides support of the 1996 Advanced Study Institute on Techniques and Concepts of High Energy Physics, the latest in a series of successful biennial institutes that date back to 1980. The purpose of the institute is to provide instruction on advanced technology in particle- physics experiments and related theoretical concepts to a select group of young physicists at the level of recent PhD's or advanced PhD students. The award covers their travel and incidental expenses in part. ***